Natural Hazard Mitigation Experiences in Japan

0101111
Spencer

This award will support American graduate students, middle school science teachers, and university faculty to participate in research related activities in Japan in connection with NSF's Summer Programs in Japan. The project is led by Professor B.F. Spencer, Department of Civil Engineering, University of Notre Dame, in collaboration with Professor Yozo Fujino, Department of Civil Engineering, University of Tokyo. Faculty and students selected for the program will participate in workshops and site visits prior to participation in the formal NSF Summer Programs. The workshops and site visits will provide broad exposure to natural hazards mitigation research in Japan and enable the American participants to establish relationships with Japanese researchers and students in their field.

Japan is a world leader in natural hazards mitigation research. Professor Spencer's project will help connect American students and researchers to the most active Japanese university, government and corporate laboratories in this field. It is expected that this will have the long-term result of increasing U.S.-Japan collaboration, to the benefit of both countries.